WESTNET Networking Project

WESTNET is one of several regional networks connecting geographical regions of the United States to NSFNET, the national scientific network. It interconnects 13 campuses in the Rocky Mountain region: Arizona State University, Colorado School of Mines, Colorado State University, New Mexico Institute of Mining and Technology, New Mexico State University, University of Arizona, University of Colorado (Boulder, Colorado Springs, and Denver campuses), University of Denver, University of New Mexico, University of Wyoming, and Utah State University. The network will use moderate speed lines (56,000 bits per second) except for those connecting the University of Wyoming and Utah State University, which will use duoplex lines (19.2 bits per second). The network will be upgraded to T1 speeds (1.5 million bits per second) as the technology becomes available and the need apparent. Significant cost sharing is provided by the states of Colorado and New Mexico, with additional cost sharing to be obtained from the other states and industry.